Dissertation Research: Multi-Scaled Modeling of Net Primary Productivity in a Temperate Deciduous Forest

Jerry J Johnston Indiana University The doctoral dissertation research will involve an analysis of the dynamic interactions between the atmosphere and the terrestrial carbon cycle. A difficulty in creating models which provide a deeper understanding of these systems has been the drastically different scale at which measurements of carbon pool and flux sizes have been made and the scale to which these must be extrapolated. Specifically the research will simulate these interactions at a number of spatial and temporal scales using data from ground based surveys and experiments, an above-canopy carbon-dioxide flux tower, and two different remote sensing satellites. The result will be a spatially explicit mathematical model of forest net productivity as it varies with respect to biotic and abiotic gradients present in the forested landscape of southern Indiana.